A Graduate Training Program in Environmental Biology: From Genes to Communities

GER-9553386 Stanton This proposal outlines a multi- disciplinary program of advanced training for doctoral students, to be coordinated through the Center for Population Biology at UC Davis. The CPB is a newly-formed group with established faculty of great accomplishment in graduate education and research; highly qualified applicants have been quickly attracted to our young doctoral program. Bringing diverse scholars together, the CPB facilitates interdisciplinary education in environmental biology within the context of contemporary population biology. A broadly synthetic field using sophisticated analytical techniques, population biology addresses ecological, evolutionary, behavioral, and genetic mechanisms at the heart of environmental biology. Our program pertains directly to biodiversity, endangered species, and processes of community restoration. GRT traineeships would provide the funds to increase PhD enrollment to levels that our faculty and support facilities are prepared to accommodate. Significant matching support has been pledged by UC Davis for this GRT initiative. A major component of our innovative approach is a consortial arrangement with San Francisco State University, which will direct diverse students into our PhD program in environmental biology. SFSU produces highly qualified and prepared Master's students, including large numbers of women and minorities.